Fellowships to the Third International School of Space Simulations

This grant will provide partial support for fifteen students and young researchers to attend the Third International School for Space Simulations to be held in La Londe-les-Maures and Beaulieu, France from June 15 to 27, 1987. The school will include both tutorials on the use and development of simulation codes and presentations of the most recent research carried out in space plasma physics with the aid of computer simulations. The school will be of particular benefit for young researchers, both in terms of gaining experience in simulations, and in the opportunity to interact closely with experts in the filed. Since the meeting will also be attended by European and Japanese scientists, the recipients of fellowships will be able to develop important contacts with the international research community, which should be of considerable benefit in the future. The major objective of this grant is educational. Two previous schools have been supported by NSF with great success and have helped establish a U.S. pre-eminence in the area of S/T simulations. A second objective is that of advanced code development. Modelling of the S/T environment requires sophisticated code development of 3rd plasma simulations in realistic geomagnetic field geometries. This is a difficult problem relying partly on advances in numerical techniques e.g. adaptive grids. Finally this effort will lead to advances in modelling the S/T system.